Mathematical Sciences Research Equipment Enhancements

The Department of Mathematics and Statistics at Utah State University will enhance the capabilities of an existing workstation system by purchasing a CPU upgrade, network co- processing board, network traffic software, larger disks, and peripheral video I/O equipment at an estimated cost of $53,014 to allow researchers to better visualize the results of their work by significantly increasing the performance of the existing system. The equipment will be used for the following research projects. 1. Physically Based Stochastic Models of Fracture and Fluid Flow in Rock (K. Hestir and J. Koebbe) 2. Pore-Dispersion and Homogenization (J. Koebbe) 3. Dynamical Pulse Behavior at Nonlinear Boundaries (J. Powell) 4. Newton Iterative Methods for Large Scale Nonlinear Systems (H. Walker)